CAIG: Implicit Neural Fields for Physics-Informed Assimilation of Satellite Irrigation Signals

Irrigation is critical for sustaining food production. Yet quantifying large-scale irrigation water use remains challenging. This project will develop an artificial intelligence (AI) framework to estimate irrigation and soil water conditions at the farm field scale. Additionally, this project will support graduate training at the intersection of Earth science and AI. Outreach activities will strengthen U.S. capacity for agricultural water understanding through sharing actionable irrigation information.

This project will develop a physics-informed AI framework that combines satellite observations of surface soil moisture, radar-based field patterns, and surface temperature with a high-resolution land surface model. The framework will use implicit neural fields to produce integrated daily 30-meter estimates of surface and root-zone soil moisture, soil temperature, and irrigation amount across the United States. The models will also identify irrigation-driven wetting and cooling from signals caused by rainfall and lateral water movement in hydrologically connected landscapes. The resulting data products, benchmarks, and software will support research on agricultural water use, drought resilience, evapotranspiration, and human impacts on the water cycle.